Performance of Seismically Retrofitted Buildings During the Loma Prieta Earthquake, October 17, 1989

This is a SGER project to collect and to study the perishable earthquake and structural response/damage data due to the October 17, 1989 Loma Prieta earthquake. The focus of this project is to assess the performance of previously retrofitted buildings, a unique opportunity for this kind of study made possible by this particular event. The work to be conducted includes: (1) documentation of observed damages of several (3-10) buildings, (2) detailed analysis of seismic behavior (3) field testing of damaged buildings for their dynamic properties, (4) destructive tests as necessary and as permitted by the owner, and (5) identification of improved retrofitting techniques. In addition, tests of wood frame connections will be carried out to assess the seismic performance of plywood shear walls.